PostDoctoral Research Fellowship

This award is made as part of the FY 2012 Mathematical Sciences Postdoctoral Research Fellowships Program. These fellowships support a research and training plan at a host institution in the mathematical sciences, including applications to other disciplines. The title of the research and training plan for this fellowship to William P. Cavendish is "Solenoids and Finite-Sheeted Covering Spaces of 3-manifolds." The host institution for the fellowship is The University of Oxford, and the sponsoring scientist is Dr. Marc Lackenby.